1991 Gordon Research Conference on Nonlinear Optics and Lasers (July 22-26, 1991)

This grant is in support of the 1991 Gordon Research Conference on Nonlinear Optics and Lasers to be held at Brewster Academy, Wolfeboro, New Hampshire, July 22-26, 1991. The purpose of this conference will be to provide an informal forum for the presentation and discussion of new work on selected topics in nonlinear optics, quantum electronics, and lasers, and their applications to physics and chemistry. An informal atmosphere with a strong emphasis on discussion is intended to encourage the exchange of ideas in a manner not possible at regular meetings of processional societies. A total attendance of approximately 135 scientists from universities and industry is anticipated. The National Science Foundation grant will be used to provide partial support for some invited speakers and selected junior faculty and especially students who, because of limitations of their own source of funding, require financial assistance to attend the conference.